Improvements in Undergraduate Instruction in Bioengineering,Biotechnology and Sanitary Engineering

In this joint project of the Chemical and Civil Engineering Departments at West Virginia Institute of Technology, a high performance liquid chromatograph is being used by undergraduates to perform experiments in Bioengineering, Biotechnology and Sanitary Engineering. Students are gaining experience with state-of-the-art analytical instrumentation in the increasingly important interdisciplinary areas involving the biological sciences and engineering.